Nuclear, Particle, and Weak Interaction Physics of the Big Bang and Stellar Collapse

9503384 Fuller The objective of this proposal is to examine several outstanding issues in the fundamental nuclear, particle and neutrino physics of stellar collapse, the supernova phenomenon, and the early universe. In particular, continued investigations of weak interaction physics associated with the supernova problem are proposed. in another project, primordial nucleosynthesis in the context of large mass-scale entropy fluctuations will be examined and utilized to probe the physics of the early universe. ***